Engineerng Research Equipment Grant: A 55,000 lb.-Capacity Servo-Hydraulic High Speed Testing Machine

This Engineering Research Equipment proposal is for funds for a 55,000 lb. capacity servo-hydraulic high speed testing machine with the necessary controls, intelligent interfaces and other accessories to conduct experiments to characterize polymer material behavior and to perform deformation processing experiments. Such equipment is needed for basic studies related to polymer material behavior/processing and in the development of an integrated software system that can simulate the solid phase processing of thermoplastics.